Conference: 2026 Great Plains Operator Theory Symposium

The 2026 Great Plains Operator Theory Symposium (GPOTS) is a conference to be held at the University of Iowa in Iowa City, May 26–30, 2026. GPOTS is a major international conference series in operator theory and operator algebras, attracting mathematicians at all career stages from around the world each year. The 2026 meeting will feature invited and contributed talks spanning a broad range of topics in these areas. Participants will present significant new developments and identify directions and open problems for future research.

GPOTS highlights recent advances in operator algebras and operator theory, including the structure and classification of C*-algebras and von Neumann algebras, free probability, operator theory, noncommutative geometry, the theory of operator spaces, and quantum information theory. These areas have a rich history within analysis and provide deep connections to other fields, including dynamical systems, group theory, logic, differential geometry, quantum computing, and mathematical physics. The conference offers a dynamic forum for collaboration and exchange: plenary speakers will present the latest developments and trends in the field, while contributed sessions will allow participants at all career stages to share their research and engage with colleagues. The conference website is https://sites.google.com/view/gpots-2026